Robot Planning, Learning and Selective Perception in Stochastic Domains

9312398 Dean The project will address problems in building integrated planning and learning systems for applications in mobile robotics, such as errand running, surveillance, target following, and searching for objects of a specified type. These applications require robots to work under uncertainty, complexity, and time pressure. Solutions to the associated control problems require efficient algorithms for directing movement and sensing to acquire information about the environment.